Minority Graduate Student Travel Award

9320245 Rameau This is a travel award for an exploratory visit to Harvard University, University of Texas Anderson Cancer center, and the University of California, San Diego. This travel will provide opportunities to meet faculty and examine facilities at each location. The purpose of the visits is to facilitate discussion of potential postdoctoral training, and tentative planning of scientific research to be pursued. Professors Daniel Harber, Eric Olson, and Michael Karin at the respective universities each have invited him to visit their laboratory for this purpose, and in ultimately serving as his mentor. ***